Dissertation Research: Discord and Appraisals of Interaction

The overt behaviors that differentiate the interactions of distressed and nondistressed married couples are well documented. Little is known, however, about the thoughts and feelings (i.e., appraisals) that spouses experience before and after their interactions. These appraisals are likely to be important because of their potential association with marital interactionand satisfaction. Consequently, in this study appraisals in distressed and nondistressed marriages will be assessed beforeand after discussion of a marital problem, by asking spouses to respond to a series of open-ended and structured questions. A 12-month follow-up assessment of marital satisfaction will be conducted to examine the longitudinal relation between appraisals and changes in marital satisfaction. Analyses will be conducted to test the hypotheses that (a) distressed spouses will make relatively dysfunctional pre- interaction and post-interaction appraisals, (b) pre-interaction and post-interaction appraisals will be closely related, and (c)dysfunctional pre-interaction and post-interaction appraisals will predict declines in satisfaction. This research will generate and test theory that advances the conceptual foundation of marriage beyond the study of behavior, and may help in predicting and preventing marital distress.